Computational Aspects of Combinatorial Problems

This is a research planning grant. The PI is preparing a proposal dealing with computational aspects of combinatorial problems. The PI has produced research results in the related mathematical area of combinatorics and is expected to be successful in producing research results in theoretical computer science.